A Molecular Genetic Analysis of Transcription Termination inYeast

9316701 Hyman Transcription termination, defined as the release of the nascent transcript and dissociation of RNA polymerase from the template, is arguably the least well understood aspect of eukaryotic transcription. The goal of the proposed research is to contribute to defining the mechanism(s) that are responsible for termination of transcription by RNA polymerase II. There are two specific aims. The first describes experiments that address which sequences are required to direct 3' end formation in vivo. Models proposing that a secondary structure may be important for this event will be tested. The second aim is to utilize an in vitro biochemical assay to complement, and extend the molecular approach. %%% The focus of much research in molecular biology is in the study of gene expression. This is concerned with how genes are turned on in some cell types but not others. This work is concerned with how transcription, an important step in gene expression, is controlled. Specifically we will ask how the enzyme which is responsible for the transcription reaction stops at the appropriate place in the gene. This reaction is referred to as transcription termination. Little is known about transcription termination yet it is an extremely important part of fundamental cell mechanisms. ***